Workshop on the Molecular Engineering of Ultrathin PolymericFilms: University of California, Davis (February, 1987)

This project provides support for a 3-day workshop on the molecular engineering of ultrathin polymeric film systems for new and emerging high technologies. The purpose of this workshop is to create an awareness among the research community about the technological importance of ultrathin polymeric films, to point out the important contributions that engineering and related disciplines can make, to highlight areas with special opportunities, and to permit NSF management ot use the results of the workshop to assess research opportunities and, if appropriate, to plan future funding dfforts in ultrathin film systems. In particular, the workshop will focus on the study and use of ultrthin film systems in laser technology, communications, electro-optical devices, integrated circuits, storage media, biomaterials, permselective membranes, biosensors, and catalytic active surfaces. The workshop presentations and conclusions regarding research opportunities will be presented in a Workshop Proceedings document.